Integrating Geophysical Data into New Axial Volcano Magma Chamber Model

A tomographic model that includes Axial volcano and nearby portions of the Juan de Fuca Ridge will be used to develop quantitative 3D models of stress and deformation in this region. Predictions of these models will be compared with geodetic, tidal-loading, and seismicity data.